US-Sweden Cooperative Research: Chlorofluoromethane Measurements in the Antarctic

This award will support the participation of Dr. Douglas Wallace, Brookhaven National Laboratory, in the Swedish Antarctic Expedition scheduled for December 1988 and January 1989 in the Weddell Sea, one of the world's greatest deep water formations. During the expedition Dr. Wallace will make time series measurements of chlorofluoromethanes (CFMs). The collected data will then be interpreted in conjunction with physical and geochemical parameters measured by Swedish co-investigators from the Department of Marine and Analytical Chemistry, University of Goteborg, which is one of the world's major centers of expertise on marine chemistry. Chlorofluoromethanes can be used as transient tracers of ocean circulation and mixing over decadal timescales. The proposed CFMs study can make a significant contribution to the understanding of oceanographic and geochemical processes in the Weddell Sea. The study of dissolved CFMs as time-dependent tracers in the ocean is especially valuable in this region, where globally important deep and bottom water types are formed. Both the U.S. and Sweden will clearly benefit from the proposed work. The CFM data base previously collected by U.S. scientists will be expanded and the Swedish expedition will be greatly strengthened by the addition of CFM measurements to the shipboard program.